Precision Electromagnetic Studies of the Structure of Few Body Nuclei and Nucleons at Jefferson Lab

The nuclear physics group at California State University, Los Angeles,
studies nuclear structure of low mass nuclei and the structure of the
neutron and proton. These studies use the high energy electron
accelerator at Thomas Jefferson National Laboratory, and similar lower
energy accelerators at other sites. In the present research period we
will be leading a group to study the nuclear structure of the most
common isotope of helium, helium-4. Helium-4 is an excellent laboratory
for testing theoretical models of how neutrons, protons and exotic
particles combine to form the nuclear ground state. Helium-4 is also of
particular interest because about 25% of the visible mass in the
universe is bound up in helium-4 nuclei. Understanding this nucleus will

tell us something significant about a large component of the visible
universe, as well as serve as a testing ground for nuclear theories.

Undergraduate students and graduate students are significantly involved
with our research. These students participate in the research in
meaningful ways, working directly with us or in teams. They will do and
have done data reduction and analysis, contributed to the construction
of experimental equipment for approved experiments, participated in
running the experiments, and learned how to use Monte Carlo simulation
techniques in understanding complex pieces of apparatus. Our goal is to

bring students into a research experience as soon as possible in their
college careers. This experience serves our students well, either if
they decide to go on to graduate level research, or to enter industry,
where their background in team work to solve complex problems will be an

advantage. High School science teachers have also contributed to our
research effort by doing data reduction and analysis. We hope to have a
teacher do a Master's thesis in physics using our data.